CAREER: Reliable Metallizations for High Temperature Semiconductor Devices

9625216 Povirk The goals of this CAREER development award are to gain a fundamental understanding of the factors that control film integrity and to identify materials and processes that lead to reliable and durable metallizations. The proposed research on thin films and interfacial fracture is timely and exciting and there is a good balance of the experimental and the theoretical work proposed. The educational plan shows a strong commitment to teaching and outreach activities and leadership potential in these areas is clearly evident. ***